Modelling of Long-Distance NRZ Optical Fiber Transmission

9633667 Menyuk It is proposed to study high-speed, long-distance NRZ communication systems theoretically and computationally. The focus will be on studying the physical effects that limit the attainable data rates and distances in parallel with developing reduced models that allow us to study these systems more efficiently and over a parameter range than is presently possible. Our work will be characterized by close cooperation with experimentalists. ***